Remote Data Gathering in Environmental Biology Curricula and Student Research

The acquisition of a complete night-vision system with a video recorder and a portable data-logger system to accumulate data for future analysis will provide state-of-the-art instrumentation for remote environmental data gathering. This equipment will be used in Ecology, Limnology, Wildlife Biology, Ornithology, and Environmental Biology courses as well as in undergraduate student research projects. The college will provide 50% matching funds.